CAREER: Chiral Anionic Bidentate Ligands and Their Applications in Palladium-Catalyzed Stereoselective Allylation Reactions

This CAREER award by the Inorganic, Bioinorganic, and Organometallic Chemistry program supports work by Professor Quinetta Shelby at DePaul University to develop palladium catalysts that promote the stereoselective allylation reaction of electrophiles with allylsilanes. The proposed research involves Pd catalysts ligated with anionic bidentate phosphine ligands. One aspect of the research plan focuses on methods to activate the reaction of allylsilanes with aldehydes and to promote the asymmetric synthesis of homoallylic alcohols, which are useful intermediates in the synthesis of natural products. The area of study is relevant to the fundamental understanding of principles that will improve catalytic systems for synthetic reactions. The aim of the education plan is to increase the number of women and persons in underrepresented minority groups who pursue careers as research scientists through activities including research internships, workshops on pursuing graduate education, networking, and mentoring. The education plan will provide experiences that allow students from DePaul University and Chicago State University, a primarily minority-serving institution, to become more confident in their ability to conduct research while they learn about academic options that are available in graduate programs.